BFIT - Alternative Fuel Automotive Lab

This project is improving the Automotive Technology programs at the Benjamin Franklin Institute of Technology (BFIT) by developing new, industry-inspired course curricula in alternative fuel vehicle operations and maintenance as well as sustainable automotive business practices. The project is updating lab facilities with Alternative Fuel Automotive training equipment and providing students with internships and job placement opportunities. The developed curriculum is being shared with regional and national faculty and service providers in a manner appropriate for the BFIT as a regional leader in automotive higher education training. The project is also providing an enhanced career pathway for minority and low-income students and other individuals by establishing links from high school to the BFIT for two-year and four-year degrees.